Particle Acceleration in Cosmic Plasmas

A workshop on Particle Acceleration in Cosmic Plasmas is schedule to be held at Bartol Research Institute, University of Delaware, in the Fall of 1991. Funds are requested for both travel support and some of the logistical arrangements to conduct the meeting. These funds are provided jointly by NSF and NASA.